Latest Quaternary Climate Variability from High-Sedimentation Rate Deep-Sea Cores

The PI's identified high frequency variability in faunal assemblage, stable isotopes and lithology of the Holocene section of North Atlantic deep ocean sediment cores with very high rates of accumulation (>20 cm/1000 yrs). Combined, these results suggest significant variability in deep ocean circulation and sea surface temperature on non-orbital timescales over the last 11,000 radiocarbon yrs BP. Particularly significant deep circulation events are a decrease in NADW (relative to AABW) flow during the Younger Dryas cooling (11 kyr BP) and maximum flow of NADW between 9 and 6 kyr BP. Maxima in surface water temperature are evident in recent times, 4 kyr ago, and between 6 and 9 kyr ago. The PI's intend to continue their study of marine evidence for high frequency variability in Holocene climate, to extend our record to 30 kyr BP, and to integrate our results with those of others studying the continental record. Proxy evidence for 103 yr variability in climate has been clearly identified in terrestrial records at least as far back in time as 30 kyr BP. Limited marine evidence suggests similar variability. By extending our study of the deep sea from the Holocene through the last glacial maximum, we will be able to define and contrast the characteristics of high frequency change for two completely different climatic regimes (glacial and interglacial). This effort is important to the goal of providing records and understanding of climate change over short time spans, periods short enough to occur at human/cultural timescales. Understanding of abrupt climate changes is an important objective of CDP.